Workshop in Molecular Biology for Honors High School Teachers

This project funds a workshop to explore frontiers in molecular biology, to do laboratory activities that have high potential for inclusion in regular high school biology courses, and to discuss applications in biotechnology and their related science-based societal issues. Thirty-two secondary teachers of biology or chemistry will attend a five-week summer workshop beginning in July of 1987. During this segment of the program, participants will attend lectures, do laboratory work, participate in seminars given by faculty from 12 different disciplines, hear guest lectures by representatives from pharmaceutical and food industries, and observe demonstrations by several scientific companies of equipment suitable for use in high school biology curricula. Time is set aside each week for teachers to meet as a group to share experiences and to seek ways to improve course offerings. Each teacher will be expected to do laboratory experiments that can be used in the classroom. Teachers will be encouraged to publish suitable experiments.